Mathematical Sciences: Borderline Manifolds and Rigidity in Kahler Geometry

The research entails investigations of several problems in the area of complex geometry. These are mainly to do with metric rigidity properties and holonomy groups on compact complex manifolds. This research provides insight into topological questions and has potential applications to mathematical physics.